Mathematical Sciences: Midwest Geometry Conference

The workshop entails activities in the general area of Lorentzian geometry, variational principles and gauge theory. Scientific and educational goals will be addressed.